Massive Relocation of Earthquakes Recorded at Regional and Teleseismic Distances Using a Double-Difference Algorithm, with Application to Subduction Zones

EAR-0229832
Felix Waldhauser

High-resolution hypocenter locations are most crucial in estimating seismic
hazard, inferring Earth structure, studying tectonics, and to the fundamental
understanding of the occurrence and physics of earthquakes. Several recent
studies, of which this is a continuation, have demonstrated the substantial
improvement in earthquake locations by applying a recently developed
double-difference (DD) earthquake relocation algorithm to thousands of shallow
earthquakes recorded at local distances. This project focuses on
adapting the DD method to relocate, on a massive scale (several tens of thousands of
events) and over large distances (thousands of km), earthquakes recorded at regional and
teleseismic distances. The investigators will test and evaluate the
performance of the new tools using globally recorded events for which ground truth is known, and
compare the results with results derived from commonly used location
techniques.

They will also apply the DD method to the 'groomed' ISC bulletin to
relocate large numbers of earthquakes in subduction zones with the aim to image the internal
structure of seismicity associated with descending slabs. The focus will
initially be on the Andean subduction zone with the aim to define in detail the
morphology of the slab and its correlation with patterns of microseismicity and
the rupture areas of damaging earthquakes. they will also relocate other areas
with dense seismicity to search for characteristic seismicity patterns in time
and space which may provide new insights into the occurrence and physics of
Wadati Benioff earthquakes.